Singularity Behavior in Some Geometric Variational Problems

Abstract

Award: DMS-0072486
Principal Investigator: Robert M. Hardt

This project lies in the area of geometric variational calculus,
treating the behavior of singularities and energy concentration
for various optimal or stationary functions, fields, or geometric
structures subject to geometric or analytic constraints. Specific
investigations focus on the relation between energy and
topological obstruction in mappings between manifolds,
ferromagnetic and liquid crystal materials, improper slicing of
polynomial varieties, compactness of currents in Carnot groups,
and the regularity of relaxed energy minimizers. We will
investigate the energy concentration along area-minimizing sets
for limits of singularities of p-energy minimizing maps as p
approaches a critical power. In various higher dimensional
cases, energy concentration of limits of smooth mappings may
occur along sets of infinite measure and is related to
homotopically nontrivial mappings of spheres. Singularities in
ferromagnetic and liquid crystal materials will be also studied
in both stationary and dynamic contexts. The theories of improper
intersections of polynomial zero sets from algebraic geometry
will be investigated to understand related behavior in analysis
and partial differential equations. A theory of currents in
Carnot groups will be studied with an eye on applications to
variational problems.

Underlying many physical phenomena is a least-energy principle
whereby certain configurations or fields or geometric shapes are
distinguished by their property of having less energy or area
than competing objects. The external constraints often lead to
singularities, which are special points characterized by rapid
changes of structure occurring in very small spatial regions. For
example, one observes dislocation faults in solids under stress,
domain walls in magnetized materials, vortices in superconducting
materials, liquid edges and corners in soap films, and point,
curve, and surface defects in various liquid crystal
materials. We deal with new mathematical structures and theories
necessary to explain and predict such phenomena. In these
problems, the theoretical studies of pure mathematics, the
numerical computational studies of applied mathematics, and the
phenomenological studies from physics all benefit each other and
all have a crucial scientific role.